Mathematical Sciences: "Studies in Applied Mathematics"

DMS-9504122 Avellaneda This project covers two areas of current interest in Applied Mathematics. The first part concerns problems in pattern formation arising from hyperbolic conservation laws with random initial data. The statistical properties of solutions, their probability distribution functions and the complex patterns will be analyzed from a mathematical standpoint. These problems arise in various settings in Statistical Physics, in turbulence modeling and in Cosmology. The second part of this project is concerned with the mathematical modeling of advanced composite materials with piezoelectric constituents. The mathematical methods that will be brought to bear on these problems include asymptotics for partial differential equations, including homogenization theory, probability and numerical modeling.Polymer/piezoceramic composites are ideal materials to construct high-performance sensors and actuators that can be used in a variety of industrial and medical applications.